Modeling and Simulation for Epitaxial Growth

0074152
Caflisch

This project will apply mathematical modeling and computational
simulation to epitaxial growth of thin films, in particular semiconductor
materials grown by MBE (molecular beam epitaxy). The research topics
are characterized by complex geometry and a hierarchy of length scales,
requiring significantly new mathematical and numerical approaches.
Specific topics include strain in thin films, accelerated numerical methods,
coarse-graining and the dynamics of interacting defect lines.

This project will apply mathematical modeling and computational
simulation to material science, in particular to semiconductor materials
grown by MBE (molecular beam epitaxy). Although MBE is just one of
many possible growth techniques, it is the growth method for many of the
most demanding applications, such as high-performance, low-power
systems for wireless communications. Modeling and simulation are not
generally well developed for MBE growth, and current computational
methods are not sufficient to address many of the important problems of
epitaxy. The goal is to develop new mathematical models and
computational methods that will significantly advance the state of the art.
This project is multi-disciplinary, involving mathematics (both applied
and core) and materials science, as well as participation from both industry
and university. The distinguishing feature of this collaboration is that it
combines expertise in modeling, simulation and experimentation in one
cohesive group.